Employment Responses to Global Markets

The project will model and trace the responses of individual workers and firms to changes in
the global economic environment. To this end, the project will use an extensive and unusually
rich matched data set on identified firms and identified employees between 1986 and 2001
for Brazil. The worker data offer wage information and monthly employment records, and
include detailed demographic information on the employees at establishments of all formally
established Brazilian firms, along with information on the reasons for hires, the occupations
filled, and causes for separations. Using tax identifiers, these worker records were matched
to a sample of manufacturing firms for which detailed information on balance-sheet figures,
investments, foreign factor uses, exports, and exits are available.
Brazil's large-scale trade liberalization in 1990 and a 60-percent exchange rate devaluation
in January 1999 provide salient variation in world market exposure. Resulting changes in
foreign competition, and contemporaneous technical changes among Brazilian manufactur-
ing firms, were accompanied by substantial labor displacements. Pilot research suggests that
layoffs and hires are significantly related to trade exposure. However, contrary to classic and
modern trade theory or frictionless macroeconomic models, resulting displacements can lead
to extended delays before rehiring and long adjustment periods before firms with an individ-
ual or sectoral comparative advantage start to absorb displaced workers.
Objectives and intellectual merit. The project aims to illuminate workers' varying interac-
tions with firms during employment and after separations and to explore the consequences
of Brazil's exposure to world markets for its labor market performance. Together with co-
authors, the grantee will investigate labor reallocations in response to Brazil's trade liberal-
ization in 1990, analyze the returns to skills in the presence of endogenous switching between
jobs and under changing world market exposure, evaluate the earnings effects of induced
displacements, and assessmacroeconomic shock propagation through worker separation and
imperfect re-contracting.
Beyond prior assessments of output market share reallocations and labor turnover statis-
tics, data of the present project allow the grantee to trace flows between types of firms within
and across sectors, and to estimate at the individual worker level separation risks, rehiring
likelihoods and subsequent earnings. The project will elucidate at what time horizon a lib-
eralizing economy can expect factor markets to successfully reallocate resources according
to comparative advantage, whether this process is associated with transitory or permanent
earnings losses for workers with certain characteristics, and how the transition process might
be alleviated through targeted reforms.
Broader impact. The public debate across industrialized and developing countries alike ex-
hibits much concern with the impact of global integration on domestic labor markets. The
expansion of world trade raises fears that jobs at all skill levels become increasingly sub-
stitutable across locations. This project on Brazil's labor market performance contributes to
the understanding of employment responses to global change in offering adequate matched
employer-employee data for detailed econometric analysis. Findings will be relevant to the
conduct of trade policy in countries that contemplate further liberalization, and can inform
the design of labor market instruments comparable to the U.S. Trade Adjustment Assistance.